A High Performance Connection for Research and Education Institutions and Facilities in Virginia

This award is made under the high performance connections portion It provides partial support for an OC-3 connection to the Very High Performance Backbone Network Service (vBNS). Applications include: - Acquisition of a CAVE: Breaking Research and Education Barriers by Developing and Evaluating 3D Visualization Tools with CAVE Technology - Human Computer Interaction: Visualization and Animation Groups - High Speed Civil Transport - Network-based Engineering course delivery and collaboration - National Digital Library of Theses and Dissertations - Distributed Interactive Simulation Collaborating with: Carnegy Mellon University Central Florida Institute for Simulation and Training Cornell University Eisenhower National Clearinghouse for Math & Science Education George Mason University North Carolina State University Old Dominion University University of California at Berkeley University of Illinois at Chicago University of Florida University of Georgia College of Veterinary Medicine University of North Carolina Chapel Hill University of Virginia Virginia-Maryland Veterinary College William and Mary College Argonne National Laboratory Army Research Office Defense Modeling and Simulation Office NASA Langley Naval Research and Development Center Naval Surface Warfare Center Naval Training and Simulation Center Oak Ridge National Laboratory Alcoa Durability Inc. Institute for Academic Technology John Deere The award provides partial support of the project for two years.